Hadron Spectroscopy with AI/ML and First-Principles QCD Methods

Most of the visible matter in the universe, from atomic nuclei to stars, is made of hadrons: particles such as protons and neutrons that are built from quarks and gluons. These constituents are governed by quantum chromodynamics, the theory of the strong nuclear force. Understanding how this theory produces the observed spectrum of hadrons remains one of the central open problems in nuclear physics. Modern experiments at Jefferson Lab and facilities worldwide reveal many short-lived hadrons, known as resonances, that do not fit simple pictures of quarks bound inside matter. Some of the lightest scalar mesons, which are important for understanding nuclear interactions, and other crucial observables, have been debated for decades because their masses, decay widths, and internal composition are difficult to determine. This project uses artificial intelligence, constrained by reaction theory, together with lattice quantum chromodynamics, a first-principles numerical approach, to extract resonance properties from experiments and from first-principles calculations. The results strengthen the theoretical interpretation of current and future experiments and provide training for graduate students and a postdoctoral researcher in theoretical physics, high-performance computing, statistics, and big data.

This project combines amplitude analysis, lattice quantum chromodynamics, and artificial intelligence and machine learning to advance light-meson spectroscopy. Predominantly, novel neural network architectures are used as flexible parameterizations constrained by dispersion relations, which implement the analyticity, unitarity, and crossing properties required by the scattering matrix. This framework gives data-driven, model-independent descriptions of meson-meson scattering, with emphasis first on the pole properties of the sigma/f0(500), rho(770), and f0(980) resonances. It also studies ensemble averaging and variance reduction for neural-network amplitudes and applies the same dispersive strategy to electron-positron annihilation into two pions, the dominant hadronic contribution to the anomalous magnetic moment of the muon. The lattice quantum chromodynamics component provides complementary first-principles information by analyzing scalar and tensor resonances at the flavor-symmetric quark-mass point and the f0(980) resonance from existing lattice calculations in a finite volume at heavier-than-physical pion mass. The project connects experimental data, lattice spectra, and scattering theory in a common framework and produces reusable analysis tools and data products for the hadron-spectroscopy community.